Financial Support: American Chemical Society (ACS) National Meeting; San Diego, CA; March 13-17, 2005

The PI requests financial support for the Bionanotechnology section in Polymetric Materials, Sciences, and Engineering (PMSE) division at CUNY - Hunter College.
The attendees: Hiroshi Matsui (CUNY), Kimberly Hamad-Schifferli (MIT), and Rajesh Naik (Air Force LabWright Patterson) are also presenting at this symposium.

Intellectual Merit

The ACS National meeting is the largest meeting in the fields of Chemistry and related
engineering. In the presentations being organized by Dr. Matsui's group, the topics are centered around bionanotechnology. Specifically, the group plans to explore biomaterials applications as they relate to computers, sensors and data storage, as well as relevant research applications such as tissue engineering and drug delivery.

The symposium as a whole, will have 3 sessions focused on nanomaterials in biology, the interface between biology and nanoscale systems, and biological polymers. This
symposium will focus on how to utilize biological macromolecules as building blocks to
synthesize inorganic nanomaterials, the interface between the biological world and
nanoscale systems, and use of biological macromolecules as building blocks for
polymers.

Broader Impact

The goal of the symposium is to provide a forum for direct interaction between polymer, materials, and biological researchers in order to explore new interdisciplinary research activities in nanoscience.

The invited speakers include a diverse array of intellectual backgrounds, to include
industrial, academic and government laboratories, male and female researchers, and
established as well as young investigators.